Doctoral Dissertation Research in Economics: Local Price Variation and Local Labor Market Outcomes

The dissertation research described in this proposal explores the intersection of labor
economics and urban/regional economics. The work is motivated by two key
observations: (1) Theoretical work in urban economics provides good reasons to expect
price variation across locations, and empirical evidence verifies that this variation is
substantial. (2) Standard economic models of labor market behavior, such as human
capital investment, labor supply, or discrimination, are derived under the assumption
(implicit or explicit) that individuals face the same prices. More importantly, empirical
work based on these models nearly always uses data from national data sources, but
ignore the fact the individuals live and work in local labor markets and thus face different
local prices.

The researcher proposes to revisit standard theories of the returns to education, labor
supply, and racial discrimination in models that recognize that people live in different
locations and thus face different prices. She then intends to evaluate the likely empirical
importance of these theoretical insights. The empirical work will entail evaluations of
local labor markets, and thus will require the use of very large data sets. The researcher
is requested funding from the National Science Foundation to support her use of the
long-form files of the U.S. Census at the Michigan Research Data Center.

Intellectual Merit

Preliminary theoretical work, presented in this proposal, shows how local price variation
is likely to affect important objects of study in labor economics, including the return to
education and labor force participation. Preliminary empirical work demonstrates that
there are indeed very large differences in the measured returns to education across cities
in the U.S., and also substantial systematic differences in female labor supply. It is quite
possible that if researchers ignore this variation, resulting empirical work will lead to
serious misunderstandings. There appears to be little literature on this issue.

Broader Impacts

Empirical labor economics is an important enterprise, providing key inputs to policy
analysis on such important issues as the impact of income taxes, the advisability of
subsidizing education, and the analysis of welfare policy. The research outlined in this
proposal holds promise of improving our ability to conduct this valuable research.